A Database System for Neuronal Pattern Analysis

Abstract

DBI 9870821; Gabriel, Michael; University of Illinois, Urbana Champaign

Much current knowledge about brain function is based on analyses of the firing patterns of
neurons. This field is experiencing an explosion of data. Huge data sets are being amassed
with new computer-based data acquisition systems and techniques for recording
simultaneously from multiple neurons and brain sites. Neural modeling generates large
simulated data sets that must be analyzed and compared smith experimental data. The goal
of this project is to develop an information system for all aspects of neuronal data
management, including storage, retrieval, analysis, visualization and sharing of
experimental and simulated data. The ultimate aim is to develop a set of tools, techniques
and standards that can be disseminated to help meet the needs of a large community of
neuroscientists who work with neuronal data.

Neuronal recordings can be intra-, or extracellular recordings of single spikes, ensembles
of neurons and field potentials. Researchers correlate neuronal activity with other time-
varying signals such as stimuli and ongoing behavior. All of these data are instances of
general data type, namely time-series data. The proposed information svstem will be
specialized for neuronal time-series data. This focus is complementary to efforts of other
groups to develop neuroscience information systems in domains such as molecular
neurobiology and functional brain imaging, which primarily deal with sequence and
image data.

The overarching goal of the project is to provide a system of general utility to
neuroscientists. In its current scope, the project involves the laboratories of ten facultv of
the Universitv of Illinois/Beckman Institute Neuronal Pattern Analysis (NPA) Group,
Which can be viewed as a prototype of the larger community of neuroscientists that will
benefit from this effort. In addition the project will continue to be guided by resident
colleagues of the National Center for Supercomputing Applications (NCSA), and working
associations have been formed with related projects and individual researchers to
incorporate a broad set of data handling conventions and requirements. The basic
components of the proposed svstem have either reached or are well on the way toward
completion. These include: a) a database component for organized storage and efficient
search and retrieval of neuronal data meeting specified criteria of interest; b) digital brain
atlases, to provide high-resolution neuroanatomical images for use in entering, retrieving
and analyzing time series data; c) the time series data protocol (TSDP), a standard for
representation, transfer and analysis of time series data in a platform-independent manner.
d) a suite of flexible and intuitive tools for data analysis and visualization, as vvrell as a
programming library for development of TSDP-compliant tools which will be
interoperable within the research community.

The database component has been implemented using a generalized database table
schema, allowing multiple laboratories to develop custom interfaces that work with a
shared database system. Digital fish and rabbit brain atlases have been assembled and an
interface is being prepared to integrate the atlases with the database and analysis
functions. The atlases will be supplied to several researchers, and exportation of TSDP to
other projects is planned to promote full interoperability of multiple neuronal data sets and
powerful time-series analysis and visualization tools. Development of TSDP is near
completion and will be field tested by on-site and external researchers. Powerful
commercial, public domain and custom tools have been harnessed for data analysis and
visualization, and a modular programming library is being developed to render near and
existing tools TSDP-compliant and therefore widely interoperable in the research
community.

The system will meet the needs of neuroscientists at several levels. It can serve as a
personal database management system for individual laboratories, a "workgroup" tool for
exchange of data within communities and as a means to implement an Internet-accessible
ÊpublicË database. Steps remaining for full operational status are: a) completion and
implementation of TSDP; b) integration of digital brain atlases erith data-entry, query-
development and with analysis and visualization tools; c) activation to full on-line status
of NPA pilot laboratories; d) completion of the programming library for developing
TSDP-compatible analysis and visualization tools. These steps will be carried out within
an ongoing cycle of performance testing, evaluation and improvement.